Effects of Interfacial Adhesion on Wall Slip of Polymer Melts (U.S.-Turkey Cooperative Research; Science in Developing Countries)

Description: This proposal supports the collaboration of Dr. Dilhan Kalyon of Stevens Institute of Technology (SIT) and Dr. Erdal Bayramli of Middle East Technical University (METU) in Turkey. The proposed research will be carried out at both SIT and METU. Dr. Bayramli will prepare coatings at METU and Dr. Kalyon will perform surface and rheological characterization experiments at SIT. Project funding will allow Dr. Bayramli to spend two months per year at SIT and Dr. Kalyon will visit METU for a similar period of time. Scope: This proposal will bring together research scientists from two countries working in the area of wall slippage of polymer melts. It is anticipated that this collaborative research will result in a better understanding of the processability of polymeric resins during various processing flows. Dr. Bayramli will have an opportunity to become familiar with research techniques at SIT and, likewise, Dr. Kalyon will benefit from the time he spends at METU. Therefore, this proposal fulfils objectives of the Science in Developing Countries Program in its exchange and transfer of scientific knowledge through an international collaboration.